Space Weather: Applications of Global Oscillations Network Group (GONG+) Magnetograms

Global Oscillations Network Group (GONG+) magnetograms will be employed as the principal data set to study the evolution of the solar photospheric magnetic field, and its relationship with coronal mass ejections (CMEs). Potential-field source-surface (PFSS) coronal models will be constructed using the GONG+ data to specify the inner boundary condition. These will form the basis for the synthesis of specialized synoptic maps aimed at, (1) establishing the location of source surface magnetic neutral lines, (2) predicting solar wind characteristics based on the Wang-Sheeley model, and (3) delineating the evolution of open and close magnetic field regions. This information will be posted on a real time updated web site and delivered to the NOAA/Space Environment Center website. This effort will be essential for understanding the impacts of active region emergence and fragmentation on the evolution of the large-scale coronal magnetic field.